Mathematical Sciences Computing Research Environments

9508298 Luke The Department of Mathematics and the Center for Applied Mathematics and Statistics at the New Jersey Institute of Technology will purchase Server which includes a memory upgrade, mass storage devices, and scientific software which will be dedicated to the support of research in the mathematical sciences, and in addition will employ a part-time systems administrator to oversee the network of workstations, install software and hardware, and perform routine maintenance tasks. The equipment will be used for several projects, including in particular: 1. Dynamics of Turbulent Incinerator for Hazardous Waste Remediation by Robert R. Barat, John Bechtold and Bruce Bukiet 2. Microwave Heating of Ceramics: Applicator Effects by Gregory A. Kriegsmann 3. Optimizing Matched Field Algorithms for Underwater Communications by Zoe-Heleni Michalopoulou 4. Dynamics of Multi-Fluid Interfacial Flows by Demetrios T. Papageorgiou 5. Flow in a Collapsible Tube by Madeleine E. Rosar